Numerical Linear Algebra and Approximation Theory Methods for Efficient Data Exploration

This proposal aims at developing new and effective algorithms for
performing dimensionality reduction tasks by methods which blend
techniques from numerical linear algebra and approximation theory.
Current implementations of LSI, and other dimensionality reduction
methods, rely on matrix decompositions such as the Singular Value
Decomposition (SVD). SVD-based methods compute explicitly the basis
of the dominant singular vectors and proceed with a projection of the
data on this basis. This has the desirable effect of filtering out
noise and redundancy inherent to the data, while retaining its main
structural features (e.g., `semantic contents' in LSI). However,
SVD-based methods tend to be expensive, both in terms of computational
cost and storage, and become impractical for very large data sets.
The premise of this proposal is that there is no need to compute the
(partial) SVD in order to perform dimensionality reduction. The
projection of a given vector onto the space associated with the
largest singular values can be accurately reproduced by a polynomial
filtering technique. This technique, which entails repeated
multiplication of a vector by the original data matrix and its
transpose, offers several advantages including low computational and
storage requirements. In addition, ``relevance feedback'', which
enhances significantly the quality of the results of LSI, can be
easily adapted for polynomial filtering. Perhaps more important is
the excellent flexibility of polynomial filtering in enabling various
desired reduction features. For example, an appropriate choice of the
filter will yield an arbitrarily smooth transition from the unwanted
components (small singular values) to the wanted ones (large singular
values) in contrast with the discontinuous cut-off which characterizes
Truncated SVD (TSVD). Also, some applications may require an accurate
projection (high degree polynomial) while for others this would be
wasteful or even counter-productive.

Society is currently facing an explosive surge of exploitable
information in scientific, engineering, and economical applications.
The rapidly increasing sizes of the data sets becoming available is
starting to render inadequate many of the algorithms used in `data
exploration' in spite of their merits when computational costs are set
aside. The methods investigated in this research will address the
issue of cost by taking a new approach which completely avoids the
bottleneck of the classical algorithms. If fully successful the
methods to be developed may significantly enhance the capabilities of
current state-of-the-art methods used in key areas of information
technology. For example, preliminary studies have shown that when
processing a query in a database, the proposed methods can sometimes
offer a tenfold gain in speed relative to standard methods, without
any loss of accuracy. The investigating team will also extend this
approach to the problem of face recognition. The method also has
excellent prospects in other potential applications including image
processing, and medical tomography.